Collaborative Proposal: I/UCRC: Center for Information Protection (CIP)

Iowa State University and the New Jersey Institute of Technology have joined to develop the Industry/University Cooperative Research Center for Information Protection. The primary research focus of this project is Information Assurance, commonly defined by the four main goals of security, namely, "Confidentiality, Integrity, Availability, and Policy". The goals of the Center are to assist industry in its internal research and development by partnering industrial and faculty researchers; improve the training and education of employees in Information Assurance; provide a common repository for all CIP members that contains information assurance research results, relevant literature, and other resources that can be shared within the membership; review, improve, and model specific protection architectures tailored to security problems present in critical infrastructure industries; and provide a well trained pool of students.